Classroom Equipment for Instructional Enhancement of a Mathematics/Computer Core Course

Students who do not plan to major in computer science or mathematics are benefitting from an updated laboratory equipped with IBM PS/2 computers in "Introduction to Mathematical Reasoning and Computer Programming". Students are gaining hands-on experience in computer programming and in realistic problem solving that require understanding of mathematical concepts and reasoning. The institution will contribute an amount equal to the award.//